STTR Phase II: Low Cost, Nano-Crystalline Sensors, for Real-Time Monitoring of Carbon Monoxide and Volatile Organic Compounds

This Small Business Technology Transfer Research (STTR) Phase II project will develop a fully functional, cost-effective, prototype sensor for carbon monoxide and volatile organic contaminants in air. Phase I results suggest that a sensor array based on catalyst-doped, nano-crystalline metal oxide films will provide a marked improvement in detection of contaminants, such as formaldehyde, and thereby upgrade control of indoor air quality. Phase II will develop this sensor technology with objectives of long-term use, low cost, high sensitivity, and sufficient selectivity for commercial applications.

These applications include indoor air quality monitoring, environmental air monitoring, oil refining, chemical manufacturing, automotive emission control systems, and industrial process